CAREER: Developing Platforms for Protected Qubits Using a Scanning Resonator Microscope

Quantum computing has the potential to solve fundamental problems in a broad range of fields including semiconducting materials and agricultural processes, but is currently stuck at small-scale demonstrations. The main challenge in building a quantum computer is controlling and manipulating the interactions between the building blocks of the quantum computer (known as qubits) in the face of environmental noise. The primary tool for combating this challenge is quantum error correction, which uses a collection of noisy qubits (known as the physical qubits) to build a higher-performing logical qubit. At the current physical qubit quality, however, quantum error correction requires multiple thousands of physical qubits to work. This scaling, coupled with the decrease in physical qubit quality observed when more physical qubits are incorporated onto a single chip has made reliable quantum computing seem like a remote goal. Better physical qubits are needed to reduce this significant scalability burden. This project seeks to address this problem by leveraging a unique microwave resonator to investigate limitations and improvement pathways for existing and proposed qubits. This team will focus on investigating the origins of energy loss mechanisms in leading qubit platforms such as superconducting transmons and in promising nascent platforms such as Andreev spin qubits (ASQs). This team will then use the knowledge gained to build better qubits to speed the development of a quantum computer. This project will train students on skills useful for joining the quantum workforce and will educate the broader public on quantum information through a podcast.

The central goal of this proposal is to determine how to build better qubits by characterizing the time dynamics of qubit platforms including transmons, ASQs, and excitations in spin liquids using a unique scanning resonator probe. For each of these platforms, the scanning resonator will use circuit quantum electrodynamics to measure time-resolved properties of these platforms that complement existing measurements. In the transmon, the scanning resonator will probe the origin of local, unpredictable defects that are currently limiting incorporation of transmons into large-scale processors. This team will measure the lifetimes of ASQ implementations on materials that are expected to have long coherence times but have been hard to measure due to the difficulty with making high quality superconducting circuits on these materials. Finally, this team will build synthetic qubit lattices that realize spin liquid models and measure the dynamics of their excitations to determine if they can be used as qubit platforms. The second two platforms are more exploratory. The tunable resonator enables in-situ optimizations to maximize coupling to, and measurement of these platforms. The proposed research will result in new insights in quantum engineering in terms of building better qubits. This project will also shed light on fundamental science questions about superconducting spins and their environmental interactions as well as the nature of excitations in synthetic spin liquids.